Modeling and Scaling of Material Processing Systems

The project that is supported by this award concerns the development and
application of mathematical methods for the formulation, analysis and
solution of material processing system models. Specifically, the aims
are to examine time-dependent sharp-interface solidification models,
phase-field models, and chemical vapor deposition (CVD) models.
The general goals of the projects are to examine simple model problems
to determine the process sensitivity to the operating conditions, describe
the scientific phenomena of heat, mass, and momentum transport within
the system, and to elucidate the coupled dynamics of these transport
mechanisms. This will include the investigation of time varying evolution
of solidifying fronts and concentration profiles in a two-dimensional
configuration, a multi-parameter asymptotic expansion approach for
investigation of phase-field models, and an asymptotic approach for
the investigation of a stagnation flow CVD reactor and development of an
evolution equation for the gas/solid interface of the deposited film.

This award will support research that deals with the verification of mathematical models
that are pertinent to industrial material processing. Solidification is
a common phenomenon in an industrial setting. It describes the state change
from liquid to solid. Experimentally, it has been observed that the
solidification process yields solidified surfaces which are
dendritic (finger-like) in nature. Computer simulations also show these structures.
The correctness of these simulations still lacks verification. The
first two parts of the work will address this very issue on a mathematically
rigorous basis. The third part of this work concerns thin film formation as related to
designing high performance materials. One such process for making this
film is called Chemical Vapor Deposition (CVD). Mathematical models for the
deposition reactors are often complex, and computer simulations are typically
used to extract useful information from the mathematical models. The research will
result in simpler models which can be studied in more detail. A complex computer
code can then be verified against the simpler models for correctness.